Special Project: Workshop on Undergraduate Education & Computer Vision

9988400
Stark, Louise
University of the Pacific

Special Project: Workshop on Undergraduate Education & Computer Vision

This project provides support for up to 25 faculty from primarily undergraduate teaching institutions, particularly those that serve traditionally under-represented groups, to attend the IEEE sponsored Workshop on Undergraduate Education and Computer Vision, held in conjunction with the Computer Vision and Pattern Recognition (CVPR) 2000 Conference. Growth of the field of image-related computation, including especially computer vision and pattern recognition, has created a significant need for additional educational opportunities in these areas and this project provides a highly leveraged approach toward meeting a part of that need. The workshop provides well-documented examples of courses, course modules, case studies, laboratory resources and other teaching materials to help faculty design high-quality image-related undergraduate courses. This project is a follow-on to the successful similar workshop held in 1997.